Atmospheric Chemistry of Alpha-Oxygenated Carbonyl Compounds, Including Hydroxyacetone

9707002 Zhou A highly sensitive technique for the atmospheric measurement of formaldehyde and oxygenated carbonyl compounds, including hydroxyacetaldehyde, hydroxyacetone, glyoxal, methylglyoxal, and formaldehyde will be further developed and deployed in the field. Oxygenated carbonyl compounds are important products of the atmospheric oxidation of both biogenic and anthropogenic hydrocarbons. Because of their photolytic activities in the solar spectrum of the lower troposphere, these compounds become important precursors for atmospheric free radicals. The measurement technique is based on aqueous scrubbing of the compounds of interest using a coil sampler followed by derivatization with DNPH and HPLC analysis. The detection limits will be on the order of 10-30ppt with a time resolution shorter than 20 minutes. The instrument will be deployed during a multi-investigator field campaign in 1998 at Pinnacle State Park, NY, where a large variety of atmospheric trace species will be measured simultaneously as part of the NARSTO-Northeast program.